Leadership Training Institute in Dynamical Modeling

Georgetown University seeks funding for a two year leadership program in dynamical modeling for 15 District of Columbia area high school teachers. The participants, four three-member teams from each of four area school districts and one three-member team from the private schools, will be selected from teachers who have participated in an existing program in dynamical modeling at Georgetown University. The participants will meet several times during the first school year further develop, implement and monitor progress of results from the dynamical modeling project. They will then attend a two-week summer leadership training workshop to develop an in-depth inservice course to be team-taught to other teachers in their school system in the succeeding two years. During the intervening summer, participants and PI's will attend a one-week evaluation seminar. Four follow-up seminars will be held during each of the two academic years to monitor progress of the inservice courses. Cost sharing by the university and the schools constitutes 27% of the award.